U.S.-France Cooperative Research: Atomic Scale Studies of the Dissolution of Thin Metallic Films: Formation of Surface Alloy Phase

This three-year award for U.S.-France cooperative research in materials science involves a research group led by David Seidman at Northwestern University and the research laboratory of Guy Treglia at the Universite de Mediterranee in Marseille, France. The award provides travel support and living expenses to Dr. Seidman, his associates, and a graduate student. The objective of the research is to investigate, on an atomic scale, the kinetics of the dissolution of selected thin metallic films and the formation of the surface alloy phase. The project takes advantage of the French investigators' theoretical model which demonstrates a concentration profile near a surface that is derived from the electronic structure. The investigators propose to study this physical phenomenon through the application of atom-probe field-ion microscopy.